FIRE-WUI: Agentic Artificial Intelligence for Wildfire Evacuation under Mixed Autonomy

Wildfires in the wildland-urban interface increasingly threaten communities including residents without reliable access to transportation during evacuations. Recent fire events in the U.S. highlight how simultaneous alerts, overwhelmed communications systems, and blocked road corridors can leave many households without safe evacuation routes. This project develops a new approach to deliver a reliable system that helps emergency managers understand how a wildfire is spreading, how roads are becoming inaccessible, and how different groups of people can evacuate safely. By integrating fire behavior, road conditions, and human decision-making into a single platform, the project aims to reduce congestion, improve safety, and give residents clearer and more personalized evacuation guidance. The project will also provide research opportunities for graduate students in fire science, transportation, and artificial intelligence, contributing to workforce development in fields relevant to national resilience and hazard preparedness.

The project builds a computational framework that combines four tightly connected components: (1) the translation of probabilistic wildfire forecasts into frequently updated road accessibility conditions; (2) the optimization of routing decisions for both autonomous vehicles and human-driven vehicles; (3) the design of targeted information strategies that encourage staggered departures and protect critical rescue corridors; and (4) the development of an artificial intelligence agent that provides emergency managers with verified operational recommendations and offers residents effective guidance. This project improves community safety by creating tools that help emergency agencies plan and manage evacuations more effectively during fast-moving wildfires.